A cAMP-Regulated RNA-Binding Protein that Interacts with PEPCK mRNA

; R o o t E n t r y F h C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9420733 marcia steinberg marcia steinberg @ Pt @ @ Pt @ Microsoft Word 6.0 2 ; S u m m a r y I n f o r m a t i o n ( F u c u D c ` c h ^ ` c ` c V c u D C c G C c u D C c c ' ' ' ' , 0 , K @ Normal a c " A@ " Default Paragraph Font . @ . TOC 1 0 , (# $ , @ , TOC 2 0 , (# $ , @ , TOC 3 p 0 , (# $ , @ , TOC 4 @ 0 , (# $ , @ , TOC 5 0 , (# $ ( @ ( TOC 6 0 , (# $ @ TOC 7 0 , ( @ ( TOC 8 0 , (# $ ( @ ( TOC 9 0 , (# $ . @ . Index 1 ` , (# $ . @ . Index 2 0 , (# $ ( .@ ( TOA Heading , (# $ "@ Caption c O _Equation Caption ! F b marcia steinberg \\CLM11\MCBPUB\BIOCHEM\HOD.WP5 marcia steinberg \\CLM11\MCBPUB\BIOCHEM\HOD.ABS @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , # N }w; } d g 2 HP DeskJet 500 D L f , , # N }w; } d g 2 C Times New Roman Symbol & Arial 5 Courier New 9 ) e e "; 9420733 marcia steinberg marcia steinberg ; in and study its physiological role. *** ; e 3 e C | ~ ~ ~ , T q ; | | b 9420733 PRIVATE Hod. The broad goal of this project is to characterize the recently identified cAMP regulated RNA binding protein (RBP) that interacts with PEPCK mRNA (Nachaliel, N., Jain, D., and Hod, Y., 1993, J. Biol. Chem. 268, 24203). Several features of the RBP suggest that it may play an important physiological role. The activity of the RBP, which is most abundant in the cytosolic fraction, was found to be significantly reduced in rat hepatoma cells treated with cAMP, or in livers of starved rats, a physiological state associated with an increased level of